Scientific Computing Research Environments for the Mathematical Sciences (SCREMS)

Mathematical Sciences Scientic Computing Research Environments (SCREMS)
Project Summary

The Department of Mathematics and Statistics at the University of Massachusetts, Amherst proposes to purchase one SGI four-processor machine, one le server, ten X-terminals, a color laser printer, and site licenses for Maple and Matlab which will be dedicated to the support of research for the projects proposed here. We also request funding for partial support for one professional system administrator to setup and maintain this equipment. A specic list of the projects are as follows:

Computations in Algebraic Geometry: hypergeometric functions, toric varieties, enumerative geometry (Eduardo Cattani, David Cox, Frank Sottile)

Computational Number Theory: numerical and graphical investigations of Artin L -functions (David Hayes, Siman Wong)

Mesoscopic theories and hybrid computational algorithms in materials science and uid mechanics (David Horntrop, Markos Katsoulakis, Bruce Turkington)

Geometry, Computation and Visualization: minimal, constant-mean curvature, and Willmore surfaces in 3 and 4 dimensions (Robert Kusner, Nicholas Schmitt)

The University of Massachusetts, Amherst will contribute cost sharing of 50% of the amount of this purchase, and will assume the full personnel costs after NSF funding ends.